Collaborative Research: Late Weichselian (Valdi) Glaciation and Deglaciation of Franz Josef Land, Russia

This award is for support of a glacial geologic, stratigraphic, and geochronologic study of the limits and timing of Late Weichselian /Holocene glacial and deglacial events on Franz Josef Land, Russia. High resolution satellite imagery will be used to identify study areas; radiocarbon dating of subfossils included in raised beaches of known elevation will provide information on the timing and rate of glacial-isostatic uplift; stratigraphic and sedimentological studies of glacial deposits will provide information on provenance; and integration of field data with isostatic and glaciological modeling will provide insight into glacial thickness, position of ice divides, domes, and streams and possible response to sea-level rise. This study will provide new data on Holocene and Late Weichselian glacial geometry in the Russian Arctic where little data currently exists.